Living Math

This award will partially support the production of a documentary video that will be used as a high school/college teaching tool and will also be suitable for airing on public television. The purpose of the video is to improve the public's perception of mathematics and thereby encourage an increased number of students to pursue careers in the mathematical sciences. This will be accomplished by portraying the human side of mathematical discovery and creativity. This project is being supported by the Divisions of Astronomy, Materials Research, Mathematics, and Physics within the Directorate of Mathematics and Physical Sciences, and the Division of Elementary, Secondary, and Informal Education within the Directorate of Education and Human Resources.